SBIR Phase I: Reclamation of Tungsten Carbide from Scrap Tools

This Small Business Innovation Research (SBIR) Phase I project will develop a new technology to reclaim tungsten carbide (WC) directly from WC-cobalt (Co) scrap, generated each year by the cutting tool industry in an amount worth 2 billion dollars. Since segregation by grade is nearly impossible in that it must be collected from end users and since mixing grades is highly likely, a recovery process that focuses on WC is needed. Current methods for recovery are tedious, time consuming, and expensive due to use of highly corrosive chemicals and high energy consumption. The proposed electrochemical process will eliminate the hydrogen reduction step and the recarburization step.

Recovered WC can be re-coated and remanufactured into WC-Co tools for applications in machining, ore
drilling, in forming tools and dies, and nozzles for oil and natural gas burners, inkjets and abrasive waterjet cutting. Other applications for recovered WC include materials used in electronics, composite coatings for wear resistance, and counterweights for gyroscopes. The electrochemical approach is expected to result in significant cost savings in the recovery process by reducing the amount of chemicals used, lower the equipment infrastructure use of chemicals, and reduce energy costs.